Software Control Laboratory

This proposal is to equip a laboratory that will be used for programming exercises in several undergraduate courses and for senior-level projects of honors students. The laboratory is intended to be multi-purpose in supporting programming exercises for courses in real-time control, distributed programming, operating systems, parallel programming, and expert systems. The proposed robots include two mobile Nomad 200 robots and a used stationary robotic arm, an IBM 7545 Manufacturing System. A configuration of a PC and a Sparc station connected with TCP/IP will provide a basis for programming.The control laboratory can be used to demonstrate issues in real-time programming, distributed programming, protocol design, operating systems, interfaces, expert controls, and software engineering. We expect this laboratory to have a large effect on the way several of our undergraduate courses are taught. These courses will become much more engineering oriented and will give our undergraduate students an excellent opportunity to apply their knowledge.One product of this project will be a summary of projects that use the laboratory and the effect of the laboratory on these courses, including student interest, participation and performance on exams. We will also investigate how to integrate these robotic projects into these diverse courses and describe our experiences with the courses and the laboratory in education- oriented articles.